MGR Honorable Mention: Elsie A. Martinez

This special award will give Ph.D. student Elsie A. Martinez additional flexibility in pursuing her graduate studies and research initiation in social psychology. This award will strengthen minority participation in research in this area.